SBIR Phase I: Batteryless Wireless Smart Labels with Embedded Non Volatile Memory

This Small Business Innovation Research Phase I research project initiates the development of a new class of wireless miniature smart sensor labels that continuously track and record exposure to the environmental conditions, and directly store the sensed data in digital Complementary Metal Oxide Semiconductor (CMOS) non volatile memory without requiring any battery. These batteryless CMOS-sensor micropackaged chips track temperature, humidity and shock/vibrations. The sensor chip embedded in a standard passive radio frequency identification (RFID) inlay forms a multi-sensor environmental condition tracking wireless device that can be deployed in a scalable RFID network.

The broader impact will be on enabling new markets and industries to be formed around this innovative, low cost and small form factor distributed wireless sensors for the existing live biomaterial delivery and blood plasma market segments. Commercial delivery logistics is another large potential market.